Support for Doctoral Students from U.S. Universities to Attend the 12th International Conference on Educational Data Mining (EDM 2019)

This is an award to support travel and a Doctoral Consortium at the 2019 Educational Data Mining (EDM) Conference for up to 10 doctoral students. The Doctoral Consortium provides a forum for mentoring and research collaborations with EDM participants. The doctoral students will be chosen through an application process. The selection committee will ensure that the selected students form a diverse group with respect to interests and with attention being paid for participation of underrepresented groups.

The Doctoral Consortium is a conference within the conference where each student is matched with a mentor. The students will share their research with their mentors, other experienced researchers, and other students as they pitch their research as a high-level overview. They will then get tailored advice and research contacts that will be valuable for their future.